Physics-informed AI Generative Models for Crystal Structure Prediction and Materials Discovery

Nontechnical Description:
Recent breakthroughs in artificial intelligence (AI) have transformed how researchers map out complex biological structures. However, using AI to predict how atoms pack together to form solid materials remains a major hurdle because current AI models do not consider fundamental physics laws governing crystal packing. To overcome this limitation, this project brings together an interdisciplinary team of materials experts and computer scientists to design new, physics-informed AI models that are inherently aware of the physical rules, local chemical bonding patterns, and crystallographic symmetries of periodic crystal structures. Once successful, this smart AI framework will dramatically speed up the automated discovery, design, and screening of advanced functional materials, including complex porous solids and high-performance battery materials tailored for next-generation energy storage, energy infrastructure, and smart device applications. Beyond the core technical innovations, the project features a robust community and STEM educational component. The newly developed AI tools and deep learning models will be shared publicly on open-source platforms alongside comprehensive documentation and free tutorials to promote widespread community adoption. Furthermore, the initiative will modernize graduate education through the introduction of new interdisciplinary courses, hands-on learning modules, and a companion textbook. Finally, the project will bridge connections to the materials industry through the North Carolina Battery Complexity, Autonomous Vehicle and Electrification (BATT CAVE) Research Center and inspire next-generation scientists by hosting interactive science workshops and laboratory tours for local K-12 students.

Technical Description:
This interdisciplinary project synergistically integrates domain-specific knowledge (e.g., long-range crystal symmetry and short-range local atomic environment) into mainstream generative AI architectures. The developed framework explicitly embeds physical constraints such as crystallographic group theory, symmetry operations, space groups, and local chemical bonding patterns directly into advanced generative AI systems, including generative adversarial networks, variational autoencoders, diffusion modeling, masked modeling, and large language models. This rigorous technical approach aims to solve two foundational challenges in computational materials science: (1) accelerating novel motif-based crystal structure generation that strictly matches target chemical formulas, and (2) achieving reliable crystal structure determination directly from experimental powder X-ray diffraction patterns. Ultimately, this physics-informed generative framework will be deployed to systematically generate complex metal-organic frameworks (MOFs) possessing novel structural topologies and to discover promising functional materials with tailored, optimized properties for advanced actuators and next-generation energy storage devices. By combining rigorous geometric deep learning with materials physics, this research establishes a robust data-driven paradigm for predictive materials development.